Characterization of the Homophilic Adhesion of the Myelin Protein Po

Myelin, a substance formed by Schwann cells in the nervous system, provides an insulating barrier around nerve fibers. During neuronal maturation, myelin is formed by the compaction of membrane sheets and requires the precise organization of a number of specific proteins. The long-term goals of this research are to understand how membranes of myelin are held together at the molecular level. The immediate goal is to investigate the Po protein, a major constituent of myelin that has an essential role in the maintenance of myelin shealth compactness. The Po protein contains adhesion domains that allow Po molecules to attach to each other. Dr. Filbin will characterize the Po-Po interaction by determining what manipulations of the Po molecule affect increase adhesion in transfected Chinese Hamster Ovary cells expressing Po protein. Experiments using Po-peptides and Po antibodies will be performed to determine the amino acid sequences essential for adhesion. Results from this study will help elucidate how Po functions in myelin.